Gallaudet Connection to MAX and Abilene In Support of Science Research, Engineering, and Education

The proposal plans to connect Gallaudet to MAX and then to the Abilene Network to enhance research into quality of service at a national level with experiments focused on improving the delivery of sign language and captioned video over the Internet. The proposed connectivity will more closely connect researchers at Gallaudet University to their current collaborators at other universities and will enable Gallaudet researchers to expand their efforts to move the applications they are developing beyond the edge of their campus. Although the research described in the proposal is not standard or traditional, it may contribute significantly to improving applications which will improve accessibility to the Internet.